Mathematical Sciences: Stochastic Flows of Mappings

Several types of stochastic (random) flows will be investigated: stochastic flows having singular vortex, homogeneous flows in Euclidean spaces, and stable isotropic flows. Studies of stochastic flows having singular vortex are motivated by the stirring of a fluid. The emphasis here will be on the detailed nature of the flow near the center of the vortex. The emphasis in the study of homogeneous flows in Euclidean spaces is on relating the nature of the flow to the spectral distribution. Finally, non-linear characteristics of stable isotropic flows will be investigated, particularly the shapes of some small geometric objects. Several types of stochastic (random) flows will be investigated. Stochastic flows can be used to model the motion of a fluid. In particular stochastic flows having singular vortex are used to model the stirring of a fluid. In this instance, the detailed nature of the flow near the center of the vortex will be studied.